Biomolecular Studies of Biomineralization Proteins: Triplet Motifs

John Spencer Evans
MCB 98-16703

1. Technical

The biofabrication of mineralized structures, or biomineralization, is an
organism-directed process which leads to composite material formation. An
interesting class of biomineral-related proteins are the so-called "acidic"
proteins found in association with apatites and calcium carbonates. These
proteins, which contain significant amounts of Asp, Glu, and in some cases
phosphorylated Ser residues, can bind Ca (II) ions and initiate crystal
growth. Paradoxically, these same proteins may also bind stereospecifically
to the exposed surfaces of forming mineral crystals, thereby inhibiting
growth along specific crystallographic axes. But are all "acidic" proteins
created equal? Recent experiments have demonstrated that the resulting
mineral morphology is directly related to specific amino acid sequences in
specific proteins. What is most exciting is the possibility that sequence
repeats in these proteins could represent a diverse "library" of Ca (II)
recognition sites and folding mini-domains: by using similar or different
combinations of sequence repeats, a given "acidic" protein could "tailor"
its local structure to match a specific crystal morphology or create a
specific crystal morphology. This study will investigate the similarities
and differences within the known "acidic" sequence repeat library. By using
a multidisciplinary approach, specific sequence repeats will be examined
with regard to Ca (II) binding, conformational change, crystal growth
induction, and crystal morphology matching. These results will provide a
database that will not only advance our understanding of "acidic" protein
structure and function, but also provide the basis for the creation of
synthetic "peptidomimetics" and polymers that can generate novel or
important crystal morphologies, and, ultimately, novel composite materials.
As part of this project, an educational strategy involving participation
of high school, college undergraduate, and graduate students will be
implemented; independence, problem-solving skills and team cooperation will
be emphasized.

2. Non-technical

There are a number of naturally-occurring biological-based materials --
such as sea shell and plankton exoskeleton -- which are constructed by
organisms for protection and support. These bio-based materials are unique,
in that they combine inorganic solids (minerals) with polymers (proteins,
polysaccharides). The resulting materials are usually very strong, and, are
assembled by organisms under biological conditions. Hence, "bio-inspired"
materials offer a new strategy-- namely, using self-assembly and molecule -
molecule recognition as "building techniques" -- for creating unique
materials for aerospace, industry, and medicine. To do this successfully,
it is important to understand how proteins and polysaccharides recognize
and bind to inorganic solids. This research will explore the issue of how
"acidic" proteins, such as those found in sea shells, bones, and teeth,
participate in the assembly of composite inorganic - organic materials. A
combination of physical techniques will be employed to study the structure
of sequence repeats found in "acidic" proteins. The results obtained from
these studies will be used to create a molecular "blueprint" for "acidic"
proteins, wherein important and unimportant regions for mineral recognition
can be identified. Eventually, this information will be used to create
"designer" proteins or polymers which can perform specific functions during
bio-inspired material assembly. This research project will also serve as a
teaching tool for the training of high school, undergraduate, and graduate
science majors, wherein problem-solving skills and cross-discipline
training will be featured.